RUI: Photoaffinity Labeling of T Lymphocyte Activation Complex

The cell surface structures that mediate the activation of T lymphocytes have been identified by genetic means. To extend our understanding of the function of this complex of molecules, information on the physiology of interaction between these structures and their ligand, antigen, must be developed. Identification of the antigen binding sites possessed by the genetically identified structures will be accomplished by utilizing an antigen that can covalently bind to such structures when irradiated with visible light. Specifically, sulfo.SANPAH immune T lymphocytes will be incubated with sulfo.SANPAH, irradiated, and the sulfo.SANPAH labelled structures will be identified immunochemically. A similar approach will be employed to examine antigen presentation. The information derived will contribute fundamental knowledge basic to our understanding of the ontogeny and regulation of the immune system. Since this research will be carried out at an undergraduate institution, it will also provide undergraduate students with exposure to research on a problem at the forefront of modern immunobiology.